Connection to JvNCnet

9415749 Belles Georgian Court College requests support from NSF for connection of its campus network to JVNCnet. JVNCnet is the midlevel network located in the state of New Jersey and it will provide operations management and information services and will give Georgian Court College a connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The College needs greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the school to explore innovative educational resources.